Analysis of Nonlinear Systems Modeling Partially Ordered Materials

The goal of the proposed research is the analysis of mathematical models
for partially ordered materials. The focus is on electro-magnetic, electro-optical,
and electro-mechanical interactions, emphasizing ferroelectric and piezoelectric
responses in smectic liquid crystals and elastomers and flux pinning in superconductors.
Understanding these interactions is central to the design process where
one strives to make smaller, faster, and more accurate devices. Liquid crystals
and elastomers are used to make optical switches, nano devices, and displays. They have
also been used by physicists to model artificial muscles. Superconductors are used
for power transmission and to make extremely strong magnets. A hierarchy of mathematical
problems will be considered for each material taking into account increasingly
complex interactions. Special emphasis will be given to scaling-up from
meso-scale models where the physical interactions are delineated to macro-
scale models used in applications. The PI seeks to find qualitative features of
solutions for the models. In superconductivity the PI will try to exhibit solutions
with large stationary currents (pinned currents). One reason for the interest in
smectic liquid crystals is the dramatic decrease in switching times between optical
states relative to those for dielectric liquid crystals . A major
goal here is to estimate these switching times for the models considered.
Techniques from mathematical modeling, partial differential equations, and finite

elasticity will be employed.

The proposed research centers on the study mathematical models for electro--mechanical

and electro-optical interactions in liquid crystals and models describing the

electro--magnetic properties of superconductors. With regard to liquid crystals, the

applications that we address are motivated by optical and biological systems and focuses on

the design of optical switches and nanodevices, including detectors, actuators, and

valves. These applications are found in a wide range of products such as artificial muscles
and liquid crystal displays for monitors. The development and analyses of analytic models

for these materials serves as an important complement to experimental investigations

carried out by materials scientists and physicists. An example of the phenomena we are

addressing is switching times in liquid crystal displays. Recent studies using smectic

liquid crystals show a dramatic decrease in switching times between optical states,

relative to those for standard (nematic) liquid crystals. We study a hierarchy of

mathematical problems for these materials, taking into account increasingly complex

interactions with the goals of capturing the correct physics and to accurately estimate and

compare the switching times for the models considered.